Oceanographic Technical Services 2003-2005, R/V Alpha Helix

0306906
Smith
This 3-year award to University of Alaska Fairbanks (UAF) campus provides support for technical services during NSF-funded programs on R/V Alpha Helix, a 133' general purpose research vessel operated by the Seward Marine Center as part of the University-National Oceanographic Laboratory System (UNOLS) research fleet. UAF will provide one shipboard technician on each cruise of R/V Alpha Helix to support seagoing research projects and to maintain, calibrate and provide for qualified users items from their pool of shared-use research instrumentation.
***